Metals and Metallic Nanostructures Workshop; University of California, Santa Barbara; June 13 - 14, 2012

TECHNICAL SUMMARY:

A workshop on the future of research in the Metals and Metallic Nanostructures field will be held at the University of California, Santa Barbara on June 13th and 14th, 2012. This workshop will identify important new research trends, assess research activities in terms of national priorities, examine international competitiveness in this field, and evaluate workforce development needs. Experts from diverse backgrounds will be invited to participate in this event. The workshop will produce a report that will be published and made available for public dissemination.

NON-TECHNICAL SUMMARY:

A workshop on the future of research in the Metals and Metallic Nanostructures field will be held at the University of California, Santa Barbara on June 13th and 14th, 2012. A variety of experts from diverse backgrounds in this field will be invited to participate. The workshop will produce a report that will be published and made available for public dissemination. This report will be of use in guiding the future of advanced research in this field.